Topology of Algebraic Varieties and Singularities

Abstract

Award: DMS-0405729
Principal Investigator: Anatoly S. Libgober

The proposal studies several topics in the topology of algebraic
varieties and singularity theory. The author plans to consider
the vertex operator algebras attached to possibly singular
algebraic varieties. Vertex operator algebras were attached to
non singular varieties by Malikov, Schechtman and Vaintrob and to
orbifolds by Frenkel and Szczesny. L.Borisov and author's work on
elliptic genera suggests that one may expect such algebras for
varieties with Gorenstein log terminal singularities. These
vertex operator algebras will provide new invariants of algebraic
varieties which role should be investigated. These new algebras
should provide further clarification of McKay correspondence
between the group actions and singularities. The author plans to
study new Chern class type invariants for singular varieties
which are suggested by the joint work with L.Borisov. Secondly,
the author works on finding connections between the conformal
field theory and others approaches to mirror symmetry and, as
part of this, he plans to study the relationship between elliptic
genera and other invariants of vertex operatror algebras attached
to manifolds and homological mirror symmetry. Thirdly the author
proposes to study connection between the elliptic genera and
isolated singularities and possible applications to Herling's
conjecture on properties of spectra of isolated singularities.
Final part deals with problems about the topology of the
complements, the Alexander type invariants introduced by the
author and the connections with the invariants introduced in
previous parts of the proposal.

Work on this project will clarify new mathematical structures
which appeared recently in theoretical physics and in particular
in string theory. It fits into ongoing process of restructuring
the scope of mathematical problems and methods for their
solutions. The puropose of this research is to find applications
of the new structures which emerged in theoretical physics to a
wider range of previously unsolved problems and to expand
connections between mathematics and physics. It will bring new
methods into areas of mathematics such as singularity theory
which already proved to be important link between theoretical
mathematics and science and engineering. Work on this project
will help to upgrade the instructions at UIC on graduate and
undergraduate level to the level fully representing frontiers of
contemporary mathematics.